Stereolithography (Rapid Prototyping) Apparatus for the Polymer Processing and Computer Integrated Manufacturing Laboratories

This project enriches the educational experience in three facets of the Manufacturing Systems Engineering and the Mechanical Engineering curricula. The addition of a Stereolithography Apparatus allows Polymer Processing, Computer Integrated Manufacturing (CIM), and Metal Casting Processes students (among others) to participate actively in multiple phases of a manufacturing system. Part design information along with mold design requirements, derived and gathered by Polymer Processing students, is fed to students of Computer Integrated Manufacturing. Working with the Polymer students, and equipped with SLA requirements, CIM students develop appropriate solid models for prototyping. Finally, metal casting students are provided with prototypes useful in developing permanent molds. Use of the new equipment extends through all levels of secondary and postsecondary education. Junior and senior level Mechanical and Manufacturing Systems Engineering students are provided with experiences integrating all aspects of rapid prototyping technology. The addition of SLA to GMrs Polymer Processing/Computer Integrated Manufacturing laboratories provides exposure manufacturing systems engineering to the students of GMI and inspiration in the area of Manufacturing Systems Engineering to young people considering further education in this field.